The Electric Dipole Moment and Parity Violating Spin Rotations of the Neutron

9321608 Heckel Funding is for two separate experiments. The first is an experiment to measure the electric dipole moment (EDM) of the neutron using ultracold neutrons stored in a bottle. A non-zero neutron EDM would be evidence for a breakdown of both Time Reversal (T) and Parity (P) symmetries. Limits on the neutron EDM are crucial for determining which theoretical explanations for T symmetry violation are correct. The goal of the second experiment is to measure the P violating weak interaction between neutrons and helium nuclei. This information complements other measurements and will help fully parameterized the low energy nucleon-nucleon weak interaction to provide a test of a standard eletroweak theory. We plan to measure the weak-interaction induced rotation of the polarization vector of a transversely polarized cold neutron beam on propagation through 50 cm of liquid helium. The effect, expected to be of order 10-7 radians, represents an unprecedented experimental sensitivity.